14th Workshop on the Physics of Dusty Plasmas- Held May of 2015, the 14th WPDP will be held at Auburn University located in Auburn, Alabama

This award supports graduate student travel to the 14th Workshop on the Physics of Dusty Plasmas to be held at Auburn University, Auburn, Alabama in May 2015. The field of dusty plasmas constitutes a fully developed interdisciplinary field with direct connections to astrophysics, nanoscience, fluid mechanics and colloidal physics through experimental, theoretical and computational studies. This workshop will bring together researchers from around to the world to (1) provide a review of recent advances in the field of dusty plasmas, (2) help to define new and existing research questions and challenges and (3) help to strengthen the interaction between dusty plasma researchers and facilitate interactions between the field of dusty plasmas and other related research disciplines. The involvement of graduate students will contribute to the formation of the next generation of scientists working in this area.